Biosynthesis of Nitrogenase Iron Sulfur Clusters

This proposal addresses the biosynthesis of complex iron-sulfur clusters in nitrogenase. The formation of these clusters requires participation of multiple accessory proteins, and the function of several of theese proteins, products of the nifS, nifU, and nifM genes, will be investigated. The nif gene products are all purified and available. Proposed studies will determine whether or not nifS catalyzes formation of an enzyme-bound persulfide which is the ultimate S donor in iron-sulfur cluster formation and whether nifU and nifM are involved in iron-insertion. These studies will require development of a biochemically functional resonstitution system. %%% The biosynthesis of iron-sulfur clusters is a poorly understood process whose significance goes well beyond the nitrogenase. In addition to redox systems, iron-sulfur enzymes are involved in hydrolytic processes as well as in linking transcription to the cell's redox state or iron loading. The use of biochemical and genetic approaches to the assembly of the nitrogenase iron-sulfur clusters will be of general importance and will establish a paradigm for studies of other iron-sulfur and iron-molybdnum centers.